RNA Localization and Localization-Dependent Translational Control in Drosophila Embryos

9506828 Gavis Establishment of anterior-posterior polarity of the Drosophila embryo requires the asymmetric distribution of determinant molecules. Restriction of the posterior determinant, encoded by the nanos gene, to the posterior of the embryo is essential for normal development. High concentrations of Nanos in the anterior of the embryo suppresses head and thorax development. Spatial restriction of nanos expression occurs by a novel mechanism; translational repression of unlocalized nanos RNA and derepression by localization of nanos RNA to the posterior pole. Independent but overlapping cis-acting sequence elements have been identified within the nanos 3' untranslated region (3' UTR) that mediate RNA localization and translational repression of unlocalized nanos RNA. The proposed research aims to elucidate the molecular mechanism that effects translational regulation of nanos RNA and its linkage to RNA localization by identification and characterization of components of the cellular machinery that act through the defined nanos 3'UTR sequences. The experiments described will be directed toward: 1) further analysis of the cis-acting sequences that mediate localization dependent translational control guided by evolutionary sequence and secondary structure comparisons and identification of binding sites for trans acting factors and 2) isolation and characterization of factors that interact with the translational control element by both biochemical methods and genetic screens. ***